RUI: Applications of Approximation Theory to Neural Networks and Wavelets

Mhaskar will continue his investigations on the complexity problem in
the theory of neural networks and construction of multiscales based on
orthogonal polynomial coefficients as well as samples of the target
functions. Variations of such classical methods from approximation
theory as summability methods and polynomial inequalities will be
developed to provide a unified theory of these apparently diverse areas.
The work will be applied to the numerical construction of orthogonal
polynomials, approximation on the sphere using scattered data, and the
theory of system identification.

Although approximation theory is a classical area of mathematics, active
for more than a hundred years, technological progress in the areas of
neural networks and wavelets has given rise to many new possibilities
for applications of approximation theory. Neural networks and wavelets
are both useful in high speed parallel computing, and naturally involve
the approximation of functions. Approximation theory techniques used
with neural networks have produced dramatically better results in
certain applications to array antenna technology, pattern recognition,
and financial time series prediction.